Methodology for Evaluating Forces and Moments for Joining Elements of Large Floating Offshore Platforms

The concept of a very large floating offshore platform has become the object of attention for uses such as a floating city, an airport for a heavily populated coastal city, an isolated locale for a nuclear facility, and a platform for waste disposal. For design of such a very large platform, it appears most logical and practical to consider the platform to consist of many elemental units of relatively small size which are joined at their edges. Hence, the significance of estimation of forces and moments (including extreme values expected in the lifetime) working on the boundary between units cannot be overemphasized for design of the very large platform. Furthermore, the problem implicated in this type of platform is that of minimizing the hydrodynamic forces and moments necessary to connect the units. Since forces and moments exerted on a body oscillating in waves are significantly influenced by its underwater configuration, selection of an appropriate underwater configuration of the units will provide extremely important information for the design of the platform.